U.S.-Korea Cooperative Research: Topological Concepts and Anomalies in Quantum Field Theory

This proposal requests funds to permit Dr. Roman Jackiw, Department of Physics, Massachusetts Institute of Technology, to pursue with Dr. Choonkyu Lee, Department of Physics, Seoul National University, and Dr. Jae Hyung Yee, Department of Physics, Yonsei University, for a period of 24 months, a program of cooperative research on topological concepts and anomalies in quantum field theory. These researchers seek to produce significant discoveries and/or new understanding in connection with theoretic realization of various symmetry algebras, anomalies, and quantum adiabatic phase (Berry's phase). In this collaborative research, these scientists will investigate further various physical/mathematical aspects of anomalies, Berry's phase, and other related phenomena within the Schrodinger-picture framework of quantum field theories. A better understanding of anomalous gauge theories in four dimensions also will be addressed. Drs. Jackiw, Lee, and Yee are highly respected scientists in the field of the research. This project is relevant to the objectives of the U.S.-Korea Cooperative Science Program which seeks to increase the level of cooperation between U.S. and Korean scientists and engineers through the exchange of scientific information, ideas, skills, and techniques and through collaboration on problems of mutual benefit.